PPD/SP: Using ASTER to Improve Math and Science Accessibility by Students with Learning Disabilities

Proposal # HRD-9554453 Linn Benton Community College - Benton Center Carolyn K. Gardner, Principal Investigator Title: "Using ASTER to Improve Math and Science Accessibility by Students with Learning Disabilities" ABSTRACT Students with visual processing learning disabilities typically have difficulty understanding printed materials, and math and technical subjects often present the greatest difficulties. This project proposes to initiate the first phase in research designed to develop the most appropriate interface strategies needed to optimize ASTER and related audio-formatting programs for students with learning disabilities. ASTER is an innovative computer program developed initially to present math equations in an audio format for students with visual disabilities. It is important that students with learning disabilities participate in tests on ASTER navigation during the developmental phase of this software program. Commands which might be intuitive to a student who is blind might not be as easy for a sighted student with a learning disability. Student volunteers from the pre-algebra course and Adult Basic Education program at Linn Benton Community College Benton Center will be test subjects in specific experiments conducted to answer the following questions: (1) What are the most intuitive keystrokes to select sections to be read on the computer, to browse from section to section, paragraph to paragraph, etc.? (2) What kind of computer screen display do students find most helpful? (3) What additional educational features are useful? This research project is conducted collaboratively with the Science Accessibility Program at Oregon State University which is improving ASTER as an aid to better accessibility to math and science written material for students with various disabilities. Results from this project will be used in future designs of ASTER. ***